Synthesis and Reactions of Novel Fluorinated Carbenes and Other High Energy Compounds

This award is made in the Organic Dynamics Program to support the research of Dr. William P. Dailey III at the University of Pennsylvania. The research deals with the synthesis and reaction behavior of fluorinated carbenes with the major goal of achieving a detailed understanding of the chemical bonding and reactivity of high energy compounds and reactive intermediates. Reactivity and direct spectroscopic detection of singlet carbenes which have the opportunity to undergo 1,2-rearrangements, such as ethylidenes and methylidenecarbenes, are of particular interest. Judicious substitution of fluorine on the carbene will slow or inhibit rearrangement thereby making the carbenes observable under matrix isolation conditions. The synthesis and reactivity of novel carbene precursors including diazirines and propadienones will also be explored. Theoretical calculations will be used as a tool to probe the chemistry and reactivity of the various systems to be studied.